Study on Algorithms and Applications of Centroidal Voronoi Tessellations

This proposal is awarded using funds made available by the American Recovery and Reinvestment Act of 2009 (Public Law 111-5).

Centroidal Voronoi tessellations (CVTs) are special Voronoi tessellations having the property
that the generators of the Voronoi tessellations are also the centroids, with respect to a
given density function, of the corresponding Voronoi cells. In this project, we will continue
to investigate algorithms for computing CVTs and CVT-based applications for scientific
and engineering problems. Topics of the proposed project include: study of single limit-point
convergence analysis for the Lloyd's algorithm; development and analysis of nonlinear
conjugate gradient methods for computing CVTs; study and implementation of parallel CVT/CVDT
mesh generation on the distributed systems; improving existing CCVT-based techniques for
surface meshing; incorporating these meshing schemes in adaptive solutions of partial
differential equations, especially for the convection-dominated problems; and further
investigation and improvement of the edge-weighted CVT model and corresponding algorithms for
image segmentation that combines the intensity information in the color space of the image
and the local edge information in the physical space.

CVT-based methodologies have been proven to be very useful in diverse applications in the past
decade, including but not limited to, image processing, vector quantization and data
analysis, resource optimization, optimal placement of sensors and actuators for control, cell
biology and territorial behavior of animals, high-quality point sampling, mesh generation and
optimization, numerical partial differential equations, climate and atmospheric science,
model reduction, computer graphics and vision, mobile sensing networks, logistics system
design, and etc. The application list is still growing. The proposed project has a
comprehensive coverage of algorithm design and analysis, implementation and applications of
CVTs to diverse problems in science and engineering. Mathematical tools are used to analyze
these techniques to give guidelines for their applicability; practical considerations
including parallel implementation issues are addressed to make the algorithms competitive in
real applications and large scale computations. The proposed investigation will offer new
insight into the understanding of the elegant Lloyd's algorithm and it will also lead to
exploration of transformative concepts and renovation of computational algorithms for many
important applications involving mesh optimization, adaptive algorithms, energy minimization
and image processing based on the CVT methodologies. In addition, this project will also offer
a unique educational opportunity for graduate students with interests in computational and
applied mathematics, engineering and information technology by having them participate in an
interdisciplinary research program.